Travel To Attend: International Symposium on Biophysics of Extracellular Fields Varna, Bulgaria June 2-5, 1987

The principle investigator has requested travel funds to attend the International Symposium on Biophysics of Extracellular Potential Fields. The PI is presently funded in the BRAH Program and this travel will benefit his research. He has been invited to deliver the opening lecture at the Symposium. This meeting should be well attended by east european scientists and therefore is particularly noteworthy. In addition he will attend Bulgarian Academy of Sciences and other institutions in Sofia. He is also planning to visit the Biomedical Engineering Division of the Department of Electrical Engineering at Twente University of Technology (The Netherlands). Funding is recommended.